International School of Astroparticle Physics; The Woodlands, Texas; January 6-12, 1991

This School, to be held in The Woodlands, Texas January 6-12, 1991, is the second International School of Astroparticle Physics. Hosted by the Houston Advanced Research Center (HARC), this week-long School will focus on the recent astroparticle physics developments that have been evolving from the field of high energy physics. Participation by approximately 100 students and 20 faculty members is expected.